Acquisition of a Computer System for Research in Geology and Geophysics

9629976 Manga This grant provides $39,960 as one-half support of the costs of acquiring computational equipment for use in departmental research including geophysical fluid dynamics, high pressure mineral physics and hydrology at the University of Oregon. Specifically, the equipment will include a dual- processor Silicon Graphics server with 256 Mb of RAM and a 2 Gb hard disk, two Indigo2 workstations each with 64 Mb RAM and 2 Gb hard disks and additional mass storage equipment and peripherals. Specific research topics that will utilize the capabilities of the computational equipment will include studies of two-phase flow of immiscible fluids in porous and fractured rocks, hydrological models of snowmelt/discharge relationships at high elevation, models of mantle convection, modeling the thermophysical properties of geological materials in laser-heated diamond anvil cells and rheological models of gas bubbles in magma chambers and erupted lavas. ***